Micromachined Varactors and Their Applications to RF/Analog Intergrated Circuits

Modern telecommunication systems demand high performance circuit components that can operate at billions of cycles per second. Such components must also work in extreme environment such as high and low temperature. For example, components in a cellular phone must operate properly whether it is used in Texas during the summer or in Alaska during the winter. Furthermore, these components must be economically competitive. These strict technical and economical challenges call for new approaches at the component level. The recent advances in fabrication of minute mechanical devices may make possible the implementation of high-frequency components that can address the aforementioned challenges. This research involves the design of micromachined electro-mechanically tunable capacitors for RFIC applications in the 1-2 GHz range. The investigators are examining the effects of various physical phenomena such as gravity, shock, ware, and temperature on tunable capacitor characteristics. The researchers are also studying the feasibility of RF voltage controlled oscillators and electronically tunable filters based on these micromachined devices. RF switches are also being investigated. A prototype two-plate micromachined varactor is being fabricated in MUMPS polysilicon surface micromachining technology and has a nominal capacitance of 2 pF, a tuning range of 1.5:1, a maximum control voltage of 4 Volts, and a Q-factor of 20 at 1 GHz. The first prototype voltage controlled oscillator based on such micromachined tunable capacitor oscillates at 1.35 GHz, has a tuning range of 2 percent, and has a phase noise of -98.5 dBc/Hz at 100 kHz offset from the carrier.